CAREER: Mechanisms and Models for Complex Materials

ABSTRACT CTS-9502276 A Combined research and educational program is proposed in the area of colloid science and engineering. The main objectives are understanding the role of electric field on material behavior, and determining the rheology properties of non-Brownian suspensions. Modeling efforts are designed to reveal controlling mechanisms, and make connections between the underlying mechanisms, relevant physical properties and macroscopic behavior. Experiments on well-characterized electrorheological fluids will be performed. A variety of undergraduate and graduate student courses and activities are planned in the area of particulate, multiphase flow and interfacial phenomena at the University of Wisconsin. ***